Chemical Reaction Induced Stationary Deformation Patterns and Rhythmic Motions of Red Blood Cell Membrane

Hydrodynamic instabilities in thin (0(.01-10 um)) fluid films caused by interfacial effects are theoretically studied. Three different types of interfacial instabilities are under investigation: a Marangoni instability resulting from a transverse temperature gradient across the film; instabilities arising from capillary action at the free interface of an annular film; and surface chemical reaction induced instabilities. In each of these investigations, the film is modeled as a viscoelastic liquid, and particular attention is focused on the nonlinear stability characteristics, and the deformation patterns of the film which may arise in nonlinear asymptotic states.